CAREER: Examining the genetic architecture and evolutionary history of skin pigmentation

This CAREER project examines the genetic architecture of skin through collection and analysis of genomic, phenotypic and ethnographic data. With increasing access to large-scale data from populations and corresponding developments in computational methods, there is the opportunity to explore new and long-standing hypotheses about skin and other human traits in ways that were previously inaccessible. The project advances knowledge about human biological evolution, variation, and adaptation. The PI’s educational plan tightly integrates scientific activities with a mentored research experience aimed at enhancing quantitative, scientific literacy and science communication skills in undergraduate students. To broaden the impact of this project, a targeted portion of the collected genomic and phenotypic data also is incorporated into the laboratory sections of the PI’s undergraduate and graduate-level courses with the goal of increasing content knowledge through hands-on experience. In addition, the project contributes to international research collaborations in anthropological genetics, evolution, and bioinformatics.

The PI assesses the effects of novel alleles on skin and related traits; infers the microevolutionary forces that have shaped the frequency and distribution of significantly associated loci; and investigates phenotypic differences between spatially separated populations with similar genetic backgrounds. Using comparative statistical and empirical methods, this study addresses whether a few adaptive alleles at high frequency underlie phenotypes (classical selection model), or whether selective events occurring at many loci with small to moderate effect sizes contribute to trait variation (polygenic adaptation model), providing new insights into human biological evolution. This project not only advances knowledge in biological anthropology but also informs research in disciplines such as forensic and dermatological sciences and leads to innovative discoveries translatable from the bench to the biomedical domain.